Improving Conceptual Understanding in Introductory Programming through an Interactive Flowchart-to-Code Environment

This project aims to serve the national interest by improving student conceptual understanding and persistence in introductory STEM programming courses. Introductory programming classes are essential for developing a robust STEM workforce. This project will increase student success by utilizing visual-to-text scaffolding to help novice learners translate problem-solving strategies into computer code. To achieve this, the project team will advance an interactive, web-based environment where students construct executable flowcharts that generate real-time code. This tool will act as a supportive scaffold by making program structure and execution processes visually explicit, and will require no changes to existing curricula. The broader significance and importance of this Level 1 Engaged Student Learning project rests in its expected potential to lower the barrier to entry for novice programmers. This will support student retention across various STEM pathways and fostering a resilient workforce prepared for an artificial intelligence-integrated future.

This research project investigates how visual-to-text scaffolding supports students' mental models of core programming concepts, tracing abilities, and debugging skills. To advance understanding of these processes, a mixed-methods design across multiple course implementations will be used to examine how interaction patterns relate to learning outcomes, how instructors use execution traces to diagnose misconceptions, and how engagement with visual tools influences computing self-efficacy. Data collection will incorporate concept-focused assessments, analysis of de-identified student artifacts, process-level interaction logs, and instructor reflections. Integrated quantitative, learning-analytic, and qualitative analyses will generate design insights and evaluate the intervention's effectiveness. Furthermore, the project team plans to disseminate its findings through major computing education venues, openly available instructional materials, and targeted outreach to community college instructors. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.